Brandeis Summer Odyssey Young Scholars Project

9552935 Wardle Brandeis University will initiate a four-week, summer residential, Young Scholars project with follow-up activities during the academic year for 30 students entering grades 10,11, and 12. The project will introduce several scientific disciplines to students to pursue their interest in science and mathematics. The students are placed in Directed Research Projects that take advantage of on-going research at Brandeis University. The students are introduced to academic and career options through laboratory work, field research, field trips to various research facilities both academic and commercial, and interaction with leading scientists.